SCI: Cyberinfrastructure in K-12 Education

This award funds a twelve-month planning effort to initiate technology training and support nationally to kindergarten through high school (K-12) classroom teachers through online video and multimedia resources through partnerships with national classroom teachers and the San Diego Supercomputer Center, University of California San Diego. Plans will be developed to provide online workshops ("web casts") to help teachers learn to use technology to enhance their teaching and support their students. The workshops will be designed to cover computer basics; web design and development; chemistry; geoinformatics; and bioinformatics.